11th International Biophysics Congress Travel Program in Budapest, Hungary, July, 1993

The international Union for Pure and Applied Biophysics will hold its 11th International Biophysics Congress and General Assembly in Budapest, Hungary, in July, 1993. Biophysics is the application of the laws of physics and chemistry to the understanding of the fundamental mechanism of life. It concentrates on subcellular and highly quantitative general questions. Many disciplines, including medicine, chemistry, neurology, cell physiology, physics and microscopy overlap to form the biophysical science community. %%% The International Biophysics Congress is the largest and most comprehensive international meeting in the field of biophysics research. The Congresses are highly regarded for the quality and scope of their programs. The scientific program offers symposia on topics of current interest and scientists of international reputation have been selected to serve as invited participants. The standing of U.S. scientists in this field is well known and respected and it is important that they attend to learn from and discuss their research experiences with experts from all over the world.